RAPID: Post-Earthquake Fires in the March 2011 Japan Earthquake and Tsunami

This Grant for Rapid Response Research (RAPID) award provides funds to study the fire-related aspects of the March 2011 Japan earthquake with the aims to improve understanding of where, when, and how fires ignite; how fires spread through a neighborhood; and how they ignite and are suppressed in industrial facilities. The Tôhoku earthquake and tsunami caused 345 fires more recorded fires than any other earthquake in history. By comparison, there were about 110 recorded in Kobe (1995), 110 in Northridge (1994), 128 in San Fernando (1971), and 36 in Loma Prieta (1989). This project will involve three main steps: (1) collecting data on the fire-related aspects of the event through site visits, interviews with key informants, and secondary data sources; (2) compiling the data into easily usable, comprehensive databases that includes all data on each fire and relevant auxiliary data in a consistent format; and (3) analyzing the data through descriptive statistics, fitting generalized linear statistical models to the ignition data, and comparing observations of spread to that estimated by a new physics-based urban fire spread model. The PI and consultant on the project have extensive background in the study of post-earthquake fires, including field investigation of past events and development of models of ignitions, spread, and suppression. This research will contribute knowledge on three main aspects of post-earthquake fires ignitions, spread through a neighborhood, and fires in industrial facilities. It will improve understanding of the number, locations, causes, and timing of post-earthquake ignitions. The substantial inherent randomness in the phenomenon requires use of statistical approaches that are highly dependent on the amount and quality of available data. This project will greatly improve the available ignition data by almost doubling the number of observations documented in previous earthquakes; documenting areas in which ground shaking was strong enough to induce ignitions but did not, substantially improving our ability to forecast ignitions; by providing more consistent and comprehensive data than currently available; and by providing data on both ground shaking and tsunami-induced ignitions. Statistical modeling will be conducted to determine what the data suggests about where, when, why ignitions occur and to improve forecasting of ignitions in the future. Understanding of fire spread through a neighborhood will be enhanced by collection of data that allows more meaningful comparison with the emerging new generation of physics-based urban fire models. These models are potentially powerful but they need more comparisons to real events to improve them and build their credibility. Finally, the project promises to provide new insights into how post-earthquake fires start, spread, and are suppressed in industrial facilities specifically. We will examine how the fire safety systems in place perform in the face of extreme common cause failure mode of a major earthquake.

The improved knowledge of post-earthquake ignitions and urban fire spread will be directly integrated into the development of better post-earthquake fire models. Those models can then in turn be integrated into regional earthquake loss models like HAZUS-MH, which have great demonstrated value to society by supporting long-term emergency response planning, urban planning, and loss estimation. The research results will be integrated into the PIs graduate Risk Analysis course and will be presented at professional conferences. A graduate student research assistant will participate in all aspects of the project and the research will form an integral part of his dissertation on post-earthquake fire modeling.